STTR PHASE I: Integration of Electromagnetic Actuation Using VOST Design

This Small Business Technology Transfer (STTR) Phase I project will investigate the feasibility of using electromagnetic force to actuate a Venturi Off-Set Technology VOST(TM) valve. Traditional valve actuator stems and packing are significant sources of harmful emissions and provide opportunities for fluid contamination. The actuator innovation to be developed in this project would eliminate stems and packing, thereby eliminating this source of emissions. The VOST(TM) axial design provides the platform to accomplish this task, but only if actuated electromagnetically. This investigation will utilize design modeling (numerical models) and actuator testing to determine torque, speed and displacement properties needed to configure an electromagnetic actuator. First the work plan will evaluate the VOST(TM) design for torque, speed and rotational displacement specifications. Information obtained will be used to rank three potential actuator configurations. The most promising configuration will be prototyped and tested for performance. In addition, commercial feasibility of this configuration will be assessed using component cost, complexity, and serviceability. It is anticipated that the selected electromagnetic configuration will meet desired operational parameters. VOST(TM) designed valves incorporating this actuation concept will eliminate sources of emissions.

If successful, the research will result in an electromagnetic actuator configuration that can facilitate a hermetically sealed valve. The actuator concepts developed can be extended to any application requiring an axial rotation of 180 degrees or less. This will apply to control systems beyond valves.